Summer Seminars on Teaching Introductory Physics Using Interactive Methods and Computers

This project helps introductory physics teachers develop the instructional, computing and laboratory interfacing skills needed to help their students learn physics by using the computer in the exploration of real-world phenomena. A two- week seminar is being offered in June 1993 and 1994 with 30 participants invited each summer. Topics covered will include: interactive instructional strategies based on outcomes of educational research; computer interfacing; use of spreadsheets and graphing packages; data and error analysis techniques; the application of laboratory interfacing real-time data analysis to lecture demonstrations; and numerical problem solving and modeling.